Expedited Award: Electron Transport Mechanisms in Compound Semiconductor Devices by SEM Measurements

Semiconductor Field Effect Transistors and GaAs/AlGaAs Heterojunction Field Effect Transistors have demonstrated performance suitable for operation in systems at millimeter wave frequencies, and in ultra-high speed integrated circuits. While a large body of work modeling these devices exists, the only experimental results are S-parameter device measurements and the device performance in circuits. Thus, the detailed physics of these devices are surmised from their circuit performance and the correlation of trends predicted by modeling. Measurement of parameters affecting the physics of these devices are virtually nonexistent. This proposal will attempt to measure some fundamental device parameters using an electron beam probe. Previous, work of this kind on semiconductor devices, have been largely confined to Gunn devices, and GaAs FETs. Other work in this area has been performed by using the gate current of a GaAs FET as a measurement probe for the electron temperature in the channel.